Dynamic Stability in Bipedal Motion

The long term objective of the research is to contribute theoretical and experimental knowledge to the field of controllable biped machines. The goal of this research project is to use this knowledge to allow a two legged machine to be in equilibrium with its environment, and to be capable of dynamically stable motion. Specific research results expected from this research are: new knowledge of the dynamics of biped stability, simulation studies of balance and motion using a biped model, an appropriate biped control model (emphasizing concurrent processes), biped balance algorithms, biped motion algorithms, biped reflex algorithms, and new knowledge of the relationship between balance and motion. These theoretical and simulation results will be validated using an experimental biped test bed. Several methods will be investigated for attaining standing equilibrium and in-motion stability. One of these methods involves investigating the separation of equilibrium (or balance) from motion. If feasible, this separation will greatly simplify motion algorithms. It is expected that a biped model will be finalized and that a dynamically stable biped experimental machine will be demonstrated.